Enhancement of an Undergraduate, General Purpose Interface Bus (GPIB) Controlled Electrical Engineering Laboratory

The School of Engineering at Morgan State University will enhance its undergraduate, lower-level, electrical engineering laboratories by the addition of GPIB instrumentation. This will enable the student to either manually control an experiment or to develop a computer program to control the instrumentation and take measurements with a computer. The computer control will also allow the student to reconfigure the circuit under test rapidly, analyze the data with the full power of the computer, and finally, display the data on a digital oscilloscope.